AMP: Chicago Alliance for Minority Participation (CHAMP)

HRD-9350587 Cross, Dolores Chicago State University The Chicago Alliance for Minority Participation (CHAMP) is a consortium of six Chicago area universities supported by a network of local businesses, national laboratories, and local school districts. The six universities are: Chicago State University, DePaul University, the Illinois Institute of Technology, Loyola University, Northwestern University, and the University of Illinois at Chicago. These institutions enroll over 2,000 minorities a year in science, engineering, and mathematics (SEM) fields. The mission of the Alliance is to significantly increase the quantity and quality of minority students receiving SEM baccalaureate degrees and to increase the pool of minority students entering graduate school. The Alliance will accomplish this goal by replicating successful programs at new schools, by allowing students to participate in bridge programs or research experiences outside their own schools, by using the consortium to test new programs, and by hosting consortium-wide activities such as an Alliance Student Research Conference. The Alliance partners believe that such interactive and cooperative activities will give the consortium a synergy that would not exist if these programs operated in isolation. The Alliance proposes two bold objectives: (1) to quadruple the output of SEM baccalaureate degrees awarded to minorities in Chicago so that a minimum of 1,000 minority students per year will receive baccalaureate degrees in SEM fields by the year 2000; and (2) to place at least 200 minority students per year in SEM graduate programs by the year 2000.